Strongmotion Digitized Data from SFR Yugoslavia for Researchin Earthquake Hazard Mitigation

This action is to complete the data processing and all pertinent data file information. It involves the preparation of a list of all relevant parameters describing all digitized accelerograms, including the coordinates, time, depth, magnitude, and maximum intensity of all earthquakes; coordinates of the recording stations; and all relevant properties of the recording instruments such as orientation, and the soil and geological characteristics of the site.